REU Site: Summer Undergraduate Mathematics Research at Kansas State University (SUMaR at K-State)

SUMaR at K-State is a program that brings ten undergraduate students each summer to pursue research in mathematics on the Kansas State campus campus under the mentorship of faculty advisors. Students are recruited from a wide pool of applicants with preference being given to students from colleges and universities where research opportunities are limited. The objective of the program is to introduce students to research and lead them to obtain results that can be presented at conferences and are publishable. Each year three faculty mentors develop student projects and the REU students are split into three teams of roughly equal size to work together on one of the projects for seven weeks. During this time, the students meet with their mentor at least once a week and participate in workshops and extracurricular activities that are provided. Some activities are designed specifically for the SUMaR at K-State students, others are offered by Kansas State for all participants in summer research programs.

Mathematically, student projects can be in homological algebra (for example The homotopy Lemma for A-infinity coalgebras), applied math (for example Nondestructive imaging of photonics crystals using sampling methods), analytic number theory (for example Solutions to differential equations in automorphic forms), logic (for example Agent Based Models for Efficient Formal Verification), or differential topology (for example Degenerate critical points of smooth functions on manifolds of dimension three). At the end of the program, participants make posters describing the results of their projects. These posters are presented by the participants at undergraduate research conferences. Project results for some projects are published in peer-reviewed journals.